CLEANER: Collaborative Research: Collaborative Large-Scale Engineering Analysis Network for Environmental Research for the Coastal Margin

0414460 Wentling The goal of this planning proposal is to create an integrated, collaborative framework for coastal margings resreach addressing the four US costal margins, including Atlantic and Pacific Oceans, Gulf of Mexico, and Laurentian Great Lakes. The envisioned network will support data collection, data aggregation, analytical tools for visualization and exploratory data mining, and a computational environment supporting predictive modeling capabilities.